Planning Visit to China Collaborative Study of the Extent of Late Pleistocene Glaciation on the Eastern Qinghai-Xizang Plateau, China

Munroe
0209993

This is a proposal submitted by Dr. Jeffrey Munroe, Middlebury College, to request a planning visit to the Qinghai and Tibetan Plateau, China, to collect information for developing a cooperative study with Lanzhou University on late Pleistocene glaciation. This is an important topic for understanding the amount of water tied up in glacial ice. This visit can also provide a unique opportunity to two American investigators early in their career to visit the plateau and to enrich their knowledge of Asian continental glaciation with first-hand observations.